Mass Spectrometry and Metal Ion Binding by Peptides

The project will lead to an understanding of the mass spectral fragmentation patterns associated with metal ion binding to proteins. The work will concentrate on gas-phase studies of cationic and anionic complexes between peptides and alkaline earth and transition metal (II) ions. The mechanisms of the fragmentation reactions will be studied so that information about the location of the metal ion in the fragmenting complex can be obtained. Fragmentations of complexes between the metal ions and particular amino acid sequences that are known to be specific metal-ion binding sites will be investigated. The fragmentation pattern of specially designed peptides will be probed with a view to forming specific intramolecular chelates with metal ions. The work promises to increase our fundamental understanding of the fragmentation of large biomolecular ions and metal-peptide complexes. %%% The research, in the general area of Analytical and Surface Chemistry, focuses on the use of mass spectrometry to study the gas-phase chemistry of ionic complexes between peptides and metal ions. The project promises to increase our understanding of how metal ions bind to peptides, which is key to the behavior of these important components of living systems.